Biophotonics: Cross-Reactive Suspension Arrays of Sensors

0321972
Stojanovic
A suspension array of cross-reacting hydrophobic sensors on encoded beads is being constructed to model the olfactory system. The cross-reactive suspension array will provide in flow cytometry an instantaneous fingerprint of all hydrophobic molecules present in urine. A typical array at the end of funding period will consist of six to 64 selected molecular sensors with up to 5000 readings (beads) per sensor. The arrays will be validated on urine specimens collected for metabolite screening. The hydrophobic fingerprints will be correlated with disease states. This approach will be initially demonstrated on Cushing's disease, adrenal adenoma, adrenal carcinoma, hirsutism and congenital adrenal hyperplasia. This approach will be expanded to other analytes and other samples.